SHF: Small: Architecting Stacked DRAM as Gigascale Cache, or Fast Memory, or Both

As the computing industry steps into the many-core regime, the main memory system has
become one of the key bottlenecks that limits both performance and scalability. To address these
challenges, the memory industry is developing 3D-stacked DRAM technology. Die stacking can
provide lower latency, much higher bandwidth, and significantly reduced energy dissipation.
Unfortunately, stacked memory is unlikely to have sufficient capacity to completely replace
traditional DRAM. Therefore, future memory systems will likely use stacked memory in
combination with off-chip DRAM, either architecting stacked DRAM as a giga-scale cache or as
heterogeneous main memory. However, to fully utilize the potential of stacked memory, the
system architecture must make choices that exploit the unique latency and bandwidth
characteristics offered by stacked DRAM. For example, simply applying traditional "well-understood"
cache designs and memory designs to stacked DRAM results in low performance
and poor bandwidth utilization.

This project first looks at caching organizations and management strategies for stacked DRAM
that are tailored to exploit latency and bandwidth properties of 3D stacking. It then looks at
memory organizations that can incorporate stacked memory as part of memory address space,
without relying on OS support to exploit temporal locality and still perform memory
management at fine granularity. Finally, this project investigates morphable architectures that can
dynamically reconfigure the stacked DRAM between cache structure and main memory, in order
to conserve power and optimize performance depending on the workload requirements. The
research solutions in this study will thus help future systems obtain an order of magnitude
improvement in both bandwidth and energy-efficiency from the effective use of memory
stacking.